Research on Reliable Computers

This research is developing techniques for reducing the occurrence of run-time errors in circuits and systems. Emphasis is on preventing the introduction of faults into the system through verification and synthesis techniques, and on improving the detection and diagnosis of faults causing run-time errors so that the faults can be removed from the system. Topics being pursued are: 1. Developing synthesis methods that automatically synthesize a synchronous, register-transfer level (RTL) hardware specification from a behavioral VHDL language specification; 2. determining what coverage of multiple stuck-at faults or bridging faults can be expected or guaranteed by a test for delay faults in an arbitrary circuits; 3. investigating methods for utilizing the use of output waveform characteristics in delay testing; and 4. finding fault models for intermittent failures, and methods to detect their presence.